Polytopes, Subdivisions and Piecewise Polynomial Functions

This research project involves the use of algebraic, geometric and combinatorial methods to attack fundamental questions involving convex polytopes, their subdivisions, and piecewise polynomial functions defined over them. Questions considered involve structures on the set of all subdivisions and enumerative properties of general polytopes and of spaces of piecewise polynomials. A major focus is the application of the techniques developed to specific polytopes of interest in optimization theory and in the theory of multivariate discriminants. These polytopes arise in the solution of problems in manufacturing and distribution, and the results obtained in this project will be of interest in these areas. This research is in the general area of Combinatorics. Combinatorics attempts to find efficient methods to study how discrete collections of objects can be arranged. The behavior of discrete systems is extremely important to modern communications. For example, the design of large networks, such as those occurring in telephone systems, and the design of algorithms in computer science deal with discrete sets of objects, and this makes use of combinatorial research. In addition, the type of enumerative information being sought in this project has been of use in the design of geometric algorithms for problems in robotics and motion planning.